An Operational Model for Industrial Crystallizers

The performance of traditional industrial crystallizers differs appreciably from that of laboratory crystallizers. In industry, for instance, a sustained cycling in crystal size distribution (CSD) is usually observed, which has not been reproduced p to now in the laboratory. This cycling result, for at least part of the time, in product whose CSD is undesirable and in the lowering of the productivity of the crystallizer. This investigation tests a physical model which has been proposed to explain the cycling in the large crystallizers. The experiments are performed in a laboratory set-up consisting of two interconnected well mixed crystallizers. These crystallizers simulate the two zones which exists in a large crystallizer. In the one zone supersaturation is created an primary nucleation occurs. The supersaturation is transferred to the other zone and is consumed primarily by growth and to a lesser degree by secondary nucleation. In the laboratory set-up supersaturation and growing crystals are transferred from on crystallizer to the other by flow streams, whose rates are measured and controlled. Other independent variables include the degree of classification of the transferred crystals, the independent supersaturations in the two crystallizers, and the crystallizers temperatures. The crystallizing systems examined are potassium chloride and ammonium sulfate. In addition, a method is based on liquid density measurements by a PAAR Densimeter, model DMA 60. The experiments are designed to model the conditions under which cycling occurs or does not occur and to point out ways to control the cycling by modifying the design and the operating conditions of the industrial crystallizers.